Gordon Research Conference on RNA Editing to be Held January19-24, 1997 at the Doubletree Conference Center in Ventura, CA

9603541 Smith A Gordon Research conference on RNA Editing will be held at the Doubletree Conference Center in Ventura California on January 19-24, 1997. Conference participants include a mix of established and junior investigators. A wide spectrum of different biological systems and mechanisms of RNA editing will be discussed in this rapidly developing field. A Gordon Research conference on RNA Editing will be held at the Doubletree Conference Center in Ventura California on January 19-24, 1997. Conference participants include a mix of established and junior investigators. A wide spectrum of different biological systems and mechanisms of RNA editing will be discussed in this rapidly developing field.